Spectroscopy and Structure of Solvated Ions

In this project in the Experimental Physical Chemistry Program of the Chemistry Division, James Lisy of the University of Illinois will study isolated cation and anion clusters solvated in various solvents using mass-selected tunable infrared spectroscopy. A triple-quadrupole mass spectrometer will be combined with tunable optical parametric oscillator (OPO) or CO2 laser as the spectroscopic source in the infrared. Molecular dynamics calculations are also planned for comparison with experiment and to suggest new directions. %%% Interactions between electrically charged atoms or molecules, called ions, and neutral molecules are of fundamental importance to a number of areas of study, including the study of chemical processes going on in the condensed phase such as liquid or solid solutions. These studies could thus contribute to understanding ion transport in biological systems. Similarly, examining gas phase ion-molecule processes is important for understanding chemical reactions in the upper atmosphere.